Mathematical Sciences: Mathematical Problems in EvolutionaryEcology and Electrochemistry

This project consists of two components: a) the use of reaction-diffusion equations in the study of natural selection and diffusion in simple genetic populations, and b) the distribution of charged ions in solvents under the influence of electric fields in electrochemistry. The evolutionary part extends Fisher's classical model in population genetics by allowing the fitness of the individuals and the population size to vary. Consequently, a number of mathematical complications arise; e.g., the resulting system of equations does not have a maximum principle. This, and other technical issues will be addressed in this research.